Understanding Quantum Mechanics From the Practices Up

Dr. Cordero is undertaking a new interpretation of the theory and conceptual problems of quantum mechanics (QM). His study emphasizes the role played by credible low-level theories as guides and constraints in the revision of standard QM. The project concentrates on the following elements: 1) The claim that standard QM is incomplete and needs to be revised rather than reinterpreted. 2) Problems with approaches that do not modify the time-dependent part of QM. theory as a major step forward, its critique and prospects. 4) Concepts of explanation deployed in the advancement of QM. 5) Partial theories of spontaneous state reduction induced from the practices of scientists working on specific problems. 6) The use of such theories as a source for non-ad-hoc revisions of QM. 7) Incorporation of partial theories in a generalization of the GRW theory. 8) The paradoxes generated by collapse variants and their prospects of resolution. 9) Measurement theory within stochastic revisions of QM. 10) The concepts of 'system,' 'dynamical property,' 'possibility,' 'actuality,' and 'causal efficacy' in a coherent stochastic single-case QM.